Ninth AIMS International Conference on Dynamical Systems and Differential Equations

This award provides funding to help defray the expenses of participants, especially women, graduate students, postdocs, and junior faculty, in the "Ninth AIMS International Conference on Dynamical Systems, Differential Equations, and Applications" conference that will be held from July 1--5, 2012, at the conference center Hyatt Grand Cypress in Orlando, Florida.

This conference will cover a variety of topics in analysis (e.g., dynamical systems, partial differential equations, bifurcation theory, etc), with the interplay of dynamical systems and differential equations in both pure and applied settings as a unifying theme. All of the conference topics are central to analysis and are active subjects of current research. The format of the meeting is such that young people will have ample opportunities to speak and be otherwise engaged in the various conference activities.